Federated Database Design Algorithms

The objective of this research is to design methodologies and algorithms that enable users to access data in several separate databases by using a common interface and without knowing in which databases the data is stored. The study investigates the problem of merging descriptions of separate databases and of converting requests expressed against a merged description into equivalent requests against the original separate databases. Algorithms are developed that enable the database administrator to identify and resolve conflicts encountered when merging the description of the separate databases, and to design mappings between the merged description and the original separate databases. These mappings are required to process a request that accesses portions of data from several separate databases. The research emphasizes the development of descriptive techniques associated with schemas, theoretical work on schema mappings, and graphics development for easy user intersection.